Occurrence of Fungi in Water Distribution Systems and Effects of their Presence on Water Quality

This research is on the presence of fungi in water distribution systems and their role in changing the quality of the water and in deterioration of the distributions system components. Field sampling will be conducted of water distribution systems in the Philadelphia area. Results of this research will be applicable to the engineering design of water distribution systems and treatment processes.